Research Experience for Undergraduate Students in Sensor Technologies

The goal of this effort is to generate scientific knowledge and to apply this knowledge to sensor development. The REU Site is part of the Summer Undergraduate Fellowship in Sensor Technologies (SUNFEST) program of the University of Pennsylvania's Center for Sensor Technologies. The Center provides the infrastructure for faculty and students to collaborate, exchange ideas, co-supervise students, and share resources. Students are selected by a faculty committee based on their academic potential, interest in pursuing a research career, attitude towards graduate studies, advisors' recommendations, membership in underrepresented groups, and research opportunities in the home institution. Special emphasis is placed on the broader interaction and communication of these SUNFEST fellows with the graduate students and faculty members associated with the Center. The projects suggested to the students are chosen for their educational value, scientific merit, and the prospects for continued involvement after the summer.